Knowledge Transfer in Computational Neuroscience

This award provides partial support for the Computational Neuroscience meetings, CNS*2009, 2010, and 2011, to be held in Berlin, Germany; San Antonio, Texas; and Stockholm, Sweden. The conferences will bring together a large body of international scientists working across scales (molecular to systems) and disciplinary perspectives (e.g., biology, computer science, engineering, mathematics) on various aspects of computational and theoretical understanding of the nervous system. This award will contribute to an expanded tutorial program, a new Frontiers in Computational Neuroscience Lecture, and travel support for women and minorities.